Inverse Problems and Their Applications: Deterministic and Statistical Methods for Variable Local Regularization

Abstract: 0405978 P Lamm, Michigan State University

Inverse Problems and their Applications: Deterministic and Statistical Methods for Variable Local Regularization

In this project the principal investigator plans to develop
theoretically-sound methods for the practical selection of variable
regularization parameters as part of local regularization methods for
inverse problems. The PI first proposes to undertake a deterministic
approach to the problem of variable parameter selection via the
coordination of local discrepancy principles and under the assumption
that some local information about data error-level is available.
Parts of this work will entail wavelet-based approximations used in
conjunction with the local regularization ideas. In addition, the PI
plans to study a statistical parameter estimation idea currently being
tested by researchers working on the problem of detecting ozone levels
in the atmosphere, and to give these ideas the theoretical basis they
are currently lacking. There is hope that powerful new methods for
the selection of variable local regularization parameters, methods not
requiring information about local noise-levels in the data, will
emerge from this work. As part of the project the PI plans to apply
this new class of methods to the ozone detection problem.

Inverse problems occur widely in many applications, including problems
of biomedical imaging (CT scans and X-rays), image reconstruction
(from satellites or other sources), the detection of ozone levels in
the atmosphere, and geophysical exploration. While classical methods
exist for for solving such problems, classical methods are often very
inefficient and lead to overly expensive solution techniques. A
second disadvantage of classical solution methods can be seen in
imaging applications where reconstructed images may have blurred edges
and inadequately detailed features. The PI has been working to
address these difficulties with the development of new solution
methods based on the ideas of local regularization. The use of these
newer methods can lead to a significant decrease in cost for the
solution of a wide class of practical inverse problems, with improved
resolution of detailed features of solutions.